Support of the Committee on Radio Frequencies

AST-9800751 Riemer The CORF plays an essential role in defending the radio frequency interests of the U.S. scientific community before national and international organizations that deal with the allocation and efficient use of the radio spectrum. A major CORF activity centers on participation in public pleadings before the Federal Communications Commission (FCC) regarding allocation and assignment of radio frequencies and other regulatory matters. During the past 3-years, covering the previous grant period, CORF filed comments before the FCC in matters related to the use of millimeter wavelength spectrum, preparations for WRC-95 and WRC-97, and other matters. During the coming 3-year period, CORF is expected to comment on the U.S. proposals to WRC-99 and possibly WRC-01, to continue working with the FCC on issues related to millimeter wave spectrum use, and the impact on radio astronomy of spurious emissions from transmitters on board of satellites, among others. ***